Nonlinear Optics in Photonic Micro and Nanostructures

This project deals with the mathematical and computational modeling of
light as it propagates in photonic micro and nanostructures. In one example,
a new and improved model will be proposed and used to describe novel optical
pulse propagation in photonic crystal fibers such as the recently observed
phenomena of supercontinuum generation which cannot be well understood with
the existing slowly varying envelope approximation. A second component of
this project studies light localization and steering in optical fiber arrays
and in particular the role imperfections in the manufacturing of such devices
have in enhancing or suppressing light localization. The model considered
here is a set of coupled stochastic differential equations. Finally, we will
begin to address the question of which optical phenomena that has been
observed in micro-devices can also happen in the nano-devices. In all
instances, the mathematical and computational outcomes will be presented to
and compared with leading experimentalist efforts.

This research effort is of interdisciplinary nature and the use of
mathematical modeling will help improve performance of optical devices
used in medical applications such as coherent tomography and in advanced fiber
lasers aimed at producing powers in the multi-kilowatt regime.
State of the art lasers based on the model studied here, will likely prove to be relevant for
homeland security. This project will support the advancement of two women
(a PhD student and a junior faculty) in their careers as Applied
Mathematics professionals.